REU: An Undergaduate Research Participation Program in the Biological Sciences

This award contributes funds to the Hope College Biology Department to continue their Research Experiences for Undergraduates Site. The program provides support for the meaningful involvement of ten undergraduate students in full time biology research during the summer of 1988. Hope College is committed to continuing its program of educating tomorrow's scientists through a combination of course work and serious undergraduate work in the research laboratory. Involving undergraduates in professional level research is important in the training of scientists. Five students from Hope College and five students from other schools will be selected on the basis of academic record, research ability or potential, professional objectives, independence and self-reliance, and initiative. Students will be able to choose form 18 different research projects supervised by 10 Ph.D. faculty members. Students will be matched to research areas by discussions between students and research supervisors. Research opportunities will range from the regulation of histidine utilization genes to the physiology of thirst to effects of seed dispersal patterns on survival of tropical forest plants. Students will be required to prepare a paper and present a seminar based on their research and encouraged to publish their findings.